Mirror Symmetry and Moduli of Calabi-Yau Manifolds

String theory asserts that our universe has ten dimensions: the usual three spatial dimensions and time, together with six microscopic dimensions which form a geometric object at each point called a Calabi--Yau manifold. The geometry of the Calabi--Yau manifold encodes the interactions of subatomic particles in a way that is compatible with the theory of gravity. There are millions of different types of Calabi--Yau manifolds known, but it is conjectured by Miles Reid that they are all related by simple "surgery" operations. The physical theory changes in a continuous way under these surgeries, so Reid's conjecture implies that the physical theories associated to different Calabi--Yau manifolds are all connected. The mirror symmetry phenomenon posits that Calabi--Yau manifolds come in pairs X and Y which determine equivalent physical theories. leading to an intricate but mysterious relation between the geometries of X and Y. In this project, the PI will study the mirror symmetry phenomenon and its relation to Reid's conjecture and the classification of Calabi--Yau manifolds. The project also provides research training opportunities for graduate students.

The mirror symmetry phenomenon of string theory implies that Calabi--Yau manifolds come in pairs X and Y such that the complex geometry of X is related to the symplectic geometry of Y, and vice versa. More precisely, the homological mirror symmetry (HMS) conjecture of Kontsevich asserts that the derived category of holomorphic vector bundles on X is equivalent to the Fukaya category of Lagrangian submanifolds of Y. The related Strominger--Yau--Zaslow (SYZ) conjecture asserts that X and Y admit dual Lagrangian torus fibrations over a common base, and the HMS equivalence is obtained via an analogue of the Fourier transform. The PI and a collaborator will establish new cases of the HMS conjecture for Calabi--Yau manifolds of complex dimensions 2 and 3, guided by the SYZ heuristic. The PI will use mirror symmetry to study moduli spaces of Calabi--Yau 3-folds and Reid's conjecture, including the case of non-Kahler Calabi--Yau 3-folds which plays a key role in the conjecture. The PI will pursue several related projects with undergraduate students, graduate students, and postdocs, as follows: mirror symmetry for smoothings of triangle singularities, classification of Calabi--Yau 3-folds fibered in abelian surfaces, HMS for non-compact analogues of Enriques surfaces, HMS for Fano varieties and their Kuznetsov components, and Kollar's conjecture on deformations of rational surface singularities.